PostDoctoral Research Fellowship

This award is made as part of the FY 2020 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Jorge L Gonzalez is "Rigorous mathematics and computational tools for the study of systems motivated by the sciences." The host institution for the fellowship is Georgia Institute of Technology, and the sponsoring scientist is Rafael de la Llave.